Hybrid Titanium - High Modulus Carbon Laminates

Currently titanium alloys are being used for aerospace structures because of the high specific
strength. Recently carbon fiber with ultra high modulus has been developed. In this research program a titanium / high modulus carbon hybrid composite will be developed to obtain both high specific strength and
high specific stiffness. An inorganic matrix will be used which will also provide high temperature
resistance. The primary objectives are to evaluate: the compatibility of the inorganic matrix with
titanium and the feasibility of fabricating composite plates. The plates will be made using vacuum
bagging technique and will be tested in tension and bending. The key issue is the behavior of interface
between carbon fibers and the titanium plates.

If successful, the hybrid composite will provide a new breakthrough for the fabrication of high temperature,
high specific strength and high stiffness structural components. These components will have
excellent potential for use in aerospace, automotive and civil engineering structures.
Undergraduate students will be recruited for the project. Through their involvement in the project
they will be exposed to latest materials and their development.